Collaborative Research: Operating Proposal for I/UCRC on Multiphase Transport Phenomena

A group of faculty at Michigan State University and the University of Tulsa has organized a pre-competitive, multi-university, multi-disciplinary NSF Industry/University Cooperative Research Center (I/UCRC) in the area of Multiphase Transport Phenomena.

Center research will focus on the further development, evaluation, and deployment of next generation multiphase models for turbulent and non-turbulent flows as well as computational methods for rapid design and analysis of process and equipment for a wide range of applications encountered in, but not limited to, the automotive, chemical, and petrochemical industries. Funds will be used to promote long-term synergistic partnerships among industrial members and academic research groups at the two universities. Specific problem-oriented research projects will be identified in collaboration with industrial members of the Center.